Functional Genomics of the Arabidopsis gp91-phox NADPH Oxidase Family

Plants recognize and respond to pathogen attack with specific defense
mechanisms. The rapid production of Reactive Oxygen Intermediates (ROI),
from molecular oxygen, in plants has been correlated with resistance
responses against pathogens. These oxygen derivatives can be toxic to
invading microbes and can serve as signals to the plant cells being
invaded. ROI accumulation is frequently correlated with the Hypersensitive
Response (HR), a kind of programmed cell death (PCD) which probably also
requires nitric oxide (NO) formation. In addition, ROI play a role in
morphogenetic phenomena like cell elongation, strengthening of the cell
wall, lignification and response to other stresses such as wounding attack
by insects, saline and cold stress. Examples of developmentally regulated
cell death include the formation of specialized structures like xylem,
organ sculpting (formation of certain leaf lobes, floral organ abortion),
the degeneration of organs once they have accomplished their function (the
embryo suspensor, or the aleurone and the endosperm after the seed
germination) and senescence. In flowers, the interior cell layer of the
anther locule (the tapetum) undergoes PCD during pollen development. The
role of ROI in these processes is largely unexplored.

Several biochemical mechanisms have been proposed to explain ROI generation
by plants. However, various lines of evidence implicate an NADPH oxidase,
analogous to that which generates the respiratory burst in mammalian
phagocytes, as the source of the ROI detected in plants, at least upon
infection.

This investigator has found transposon insertions in the coding region of 8 Arabidopsis Atrboh
homologs of the mammalian gp91phox, the key membrane bound NADPH-binding
flavocytochrome b558 so far identified. These mutant lines are an
incomparable tool to dissect the role of specific gp91phox homologues, not
only in plant defense but also in relation to developmental processes, PCD
and other responses to the environment. Preliminary data demonstrate
that there is redundancy in this gene family, and that ROI generated via
the gp91-phox protein play a role in at least one critical developmental
process.

The identification of the Atrboh genes enables the PI to look for more
components in early steps of the signal transduction pathway to defense,
and to study the mechanism that activates the plant NADPH oxidase.